Integrated Study of Seismic and Well Data in the Ventura Basin and San Fernando Valley for Active Subsurface Faults

9416194 Nicholson This study will acquire deep crustal seismic data, originally obtained using dynamite in the 1940's and 1950's, from the Ventura Basin, San Fernando Valley, and Los Angeles Basin. Modern deep crustal seismic data across these areas would be almost impossible to collect today due to prohibitive costs and local governmental regulations. The existing seismic data set, once acquired, will be stored at the Southern California Earthquake Center. The data will be analyzed and interpreted using well data and seismicity to help resolve the seismic behavior, subsurface geometry, and seismic potentia of active faults in the Ventura Basin and San Fernando Valley. The data will be integrated into a three-dimensional image of subsurface basin geometry and fault structure, and then compared with existing two-dimensional models from balanced, retrodeformable cross-sections. The results will help provide a basis for understanding the geometry, tectonic development and seismic hazard potential along strike of major fold and faults systems in the Ventura Basin and San Fernando Valley areas.